Alternative Transportation Energy Education System Technology (ATEEST)

Project ATEEST is providing curriculum development and faculty enhancement in alternative energy transportation. Curriculum development activities include an electric vehicle technician two year certificate program, modules on alternative fuel vehicle environmental applications, secondary school electric vehicle technology materials, and laboratory experiments in electric vehicle technology. Faculty enhancement activities include workshops for secondary teachers and workshops to prepare two-year college faculty to implement the new curriculum.